RIMI: ON THE MECHANISM OF REVERSING HEMOGLOBIN PROPORTIONS IN ADULT RATS

The purpose of this proposed research is to establish the importance of concurrent prostaglandin (PG) synthesis during changes in hemoglobin (Hb) proportions toward newborn values in anemic adult rats. The rats and mice both have no specifically fetal Hb like humans. However, for both men and mice, certain congenital anemias lead to levels of fetal and minor hemoglobins, respectively, close to those seen shortly after birth. Since 1982, a variety of chemical agents including hydroxyurea have been show to increase fetal Hb level in humans in animals or in erythroid cultures. Hydroxyurea has been also show to induce 3-minor globin in adult anemic mice. Several mechanisms have been proposed to justify the effects of these agents. However, no single mechanism is adequate enough to accept as a common mechanism for the reversion of Hb proportions in adult life. It is proposed that studies in adult rats cover the following: 1. The role of recombinant human erythropoietin and several other agents in the activation of fetal-like Hb proportions in the presence and absence of concurrent PG synthesis. 2. The burst forming unit-erythroid (BFU-E) cultures from marrow and peripheral blood derived cells for synthesis of Hb components in presence of PGE2. 3. The levels of some E-prostaglandins in plasma of recombinant erythropoietin treated and drug treated rats. The several procedures to be employed include ion exchange chromatography, HPLC, radioimmunoassay and erythroid culture. These studies should lead to an increased knowledge of mechanisms which regulate the reversion of Hb proportions toward newborn values in anemic adult rats. In addition, these studies may contribute to the development of a strategy for manipulating Hb components in diseases such as sickle cell anemia and thalassemia. Another important objective of this project is to provide an opportunity to undergraduate and graduate students in the departments of biology and chemistry of Tuskegee University to receive adequate research training, in an effort to motivate them to pursue careers in science fields.